Presidential Young Investigator Award: Modeling Immiscible-Miscible Organic Chemical Transport in the Subsurface

Research will be conducted on migration of potential chemical pollutants of groundwater in subsurface locations. Mathematical models will be formulated that may have applicability in engineering design of storage locations for hazardous wastes and in evaluation of decontamination concepts where chemicals have contaminated groundwater.